Workshop on a New Classification of the Ericaceae sensu lato, Sydney, Australia, June 16-20, 1997

9602886 Kron The abundance of morphological and molecular evidence to date consistently indicates that a new classification of the Ericaceae - an ecologically and horticulturally important group which includes, for example, azaleas, blueberries, and cranberries - is needed. This workshop, organized by Professor Kathleen A. Kron of the Department of Biology, Wake Forest University, and Dr. Paul A. Gadek of the Department of Botany and Tropical Agriculture, James Cook University of North Queensland, Australia, will provide a forum for the development of a new and modern(cladistic) classification based on all of the newly available evidence developed in the United States and in Australia. Classification of this nearly cosmopolitan group of plants is important because it provides a reference point for many areas of research such as the study of molecular evolution and the investigation of mycorrhizal associations in Epacridaceae and Ericaceae. The workshop will provide opportunities for Australian, US, and Swedish researchers to exchange information and develop new collaborative projects. In particular, collaborations on evolutionary and biogeographical questions within the southern hemisphere and Asian taxa will be pursued.